Scientific Explanation and Theories of Discovery

Professor Glymour is examining the issue of scientific explanation. In his approach, the notion of explanation has structural properties that are invariant across contexts. He argues that this approach is preferable first because one of the traditional aims of explanation has been to provide part of a strategy of discovery; that is, we should conjecture those hypotheses or theories that provide the best explanation of whatever the relevant phenomena may be. Characterizations that provide structural criteria for comparing the goodness of explanations offer the prospect of a canon that can be applied to aid in discovery (or to afford justification for discoveries already claimed) in areas of inquiry that differ in their substance. If such procedures can be had they are much to be desired. Second, he argues that philosophical progress is better made by advancing structural philosophical theories and investigating their limitations than by excluding them from consideration. Third, he has under previous NSF grants implemented structural criteria for goodness of explanation in computer programs that aid in the search for causal explanations in a variety of different substantive domains. Where it has been possible to test these programs they have turned out to be astonishingly reliable. He thus assumes that it is a reasonable conjecture that certain sorts of structural criteria, properly employed, are reliable guides to discovery, not in every context certainly, but in contexts that share certain general properties. What is not known is why that should be. Why should inference to the best explanation, or at least certain forms of it used in certain places, be a reliable guide to truth? In this grant, Professor Glymour will try to make more explicit a particular explanation of scientific explanation and to investigate why, if at all, it should form part of a reliable procedure for scientific inquiry. The enterprise is partly one of trying to make precise the intuitions that seem to be revealed by a number of examples, in part the enterprise is normative, and concerned with why preference for better explanations is a rational policy if one seeks the truth. An entirely clear, general account of the conception of explanation has yet to be given and the methodological literature contains little or no discussion of why inferences made with it should be reliable. It is this "clear, general account" which is the aim of this project.